A Geodetic Study of the Mechanics of Transpressive Faulting: The Central San Andreas Fault

9614774 Agnew The PI proposes to do a detailed GPS study along the central San Andreas fault, examining the transition between creeping and locked segments of the fault. The PI will compliment the geodetic measurements with modeling of the strain field in order to test applicability of elastic dislocation models to the San Andreas region. ***